U.S.-China Cooperative Research: Application of Molecular Simulation Technique for the Characterization of Structure and Deformation Behavior of Heterophase Polymers

9503087 Hsu This award supports collaboration between Shaw Ling Hsu, University of Massachusetts, Amherst, and Yang Xiaozhen, Institute of Chemistry, Academia Sinica, and Wu Dacheng, Chengdu University of Science and Technology, on characterization of the structures and the deformation behaviors of heterophase polymers via molecular simulation. This is an area of great interest in polymer science, with potential applications for improved understanding of the phase separated structures of various polyurethanes. Simulation studies will be conducted directed toward characterization of phase separated structures involving semi-rigid polymers used as hard segments; improved understanding of the mechanical properties of these materials; and interpretation of factors governing molecular miscibility. This collaborative effort will pursue a better understanding of the properties of polyurethane and various other advanced heterophase materials.